CT-ISG: Collaborative Research: Detecting and Preventing Attacks in Recommendation Systems

This project will evaluate vulnerabilities in relatively unstudied model-based recommendation systems in which recommendations are based on a model that relates ratings on one item to ratings on other items. Recommendation systems are a means of reducing "information overload" by filtering a potentially overwhelming number of options (such as all the products available from a seller) to identify those calculated to be of greatest interest. This project extends research on collaborative recommendation systems, which base recommendations for an individual on the preferences expressed by other people, by investigating the problem of malicious manipulation of these systems, for example, by an attacker attempting to influence the outcome with biased or faked rating profiles. Research suggests that a specific model-based systems exhibit much more resistant to recommendation attacks than memory-based systems in which recommendations are based on the principle of finding similar users or similar items. Moreover, this research will identify any previously unknown attack methods that might be specifically effective against model-based recommendation systems.